US/Japan Joint Panel on Wind and Seismic Effects

This project is for partial support of the technical program of the US Panel on Wind and Seismic Effects during the period from March 15, 2001 through September 30, 2001. This project is co-shared by several other Government Agencies. The National Institute for Science Technology (NIST) will be the coordinator for the US Panel of members. NIST will develop and manage the technical program, prepare and distribute reports and proceedings to the US members, Agencies, and Japanese counterparts, plan and develop strategies shared by the US members. Through the task committees specific issues will be discussed at the meeting. Issues are: Earthquake hazard reduction, control systems, repair and retrofit of structures and wind effects on structures.